NNA: Collaborative Research:The Circumpolar Active Layer Monitoring Network-CALM V (2019-2024): Long-term Observations on the Climate-Active Layer-Permafrost System

The permafrost (perennially frozen ground) regions occupy nearly a quarter of the Earth's terrestrial surface. Permafrost is experiencing large changes stemming from the unprecedented degree of environmental change being observed in the Arctic. Changes in the permafrost system have profound effects on the ecology, hydrology, geomorphology, and human occupation of cold environments. The main indicators of permafrost stability are permafrost temperature and thickness of the active-layer (layer of earth materials between the ground surface and the top of the permafrost that undergoes an annual cycle of freezing and thawing). These parameters are considered to be Essential Climatic Variables (ECVs) by the Global Climate Observing System (GCOS) and the Global Terrestrial Observing Network (GTOS). The Circumpolar Active Layer Monitoring (CALM) program represents the only coordinated program providing collection, standardization, open access, and dissemination of active-layer data world-wide. Widespread, systematic changes in the thickness of the active layer could have profound effects on the flux of greenhouse gases, on the human infrastructure in cold regions, and on landscape and hydrologic processes. It is therefore critical that observational and analytical procedures continue over decadal periods to assess trends and detect cumulative, long-term changes. This award will support the continuation of the active-layer observations conducted by the CALM program at the network of 168 sites distributed over circumpolar Arctic region. CALM program is an integral part of the Global Terrestrial Network for Permafrost.

Long-term observations of active-layer thickness and dynamics, obtained using standard measurement protocols, are the essential rationale behind the CALM project. Local site conditions and seasonal variations in climate create complex interactions that determine the magnitude of seasonal soil thaw and information about related biogeochemical processes. Long-term time series of thaw measurements at the same locations and across diverse terrain types and regions are required to identify scales of spatial variation, establish trends, and validate models. Measurement of thaw subsidence, which are critical for identifying potential threats to human infrastructure in the Arctic, is an integral part of the observation program. The objectives of the observational network stress the need for long-term active layer, ground temperature, and thaw settlement measurements, integration of data to provide the basis for comprehensive assessments of changes in active-layer and near-surface permafrost, and preparation and dissemination of data sets to assist detailed process studies, and in validating and developing of climate change, ecology, hydrology, and geocryology models. The geographical focus of the network of CALM grids and soil temperature sites is on Arctic tundra environments, where the program has made a substantial progress at building a consistent, long-term database that has been used effectively and extensively by the modeling community. Although this project is concerned only with observing stations located in the Arctic region, it is important to note that CALM is a global network incorporating observatories outside the Arctic Circle, including a rapidly developing Antarctic component (CALM-South). More than half of the sites in the CALM network are maintained and data reported on a voluntary basis. Educational and outreach activities are an integral part of the proposed research. The project will provide opportunities for field experience and educational participation at levels ranging from elementary school through postdoctoral. The circum-Arctic nature of CALM will foster extensive international collaboration between students involved in project activities. An outreach component of the project includes extensive involvement of local, predominantly indigenous population in observational program at remote Arctic sites.